Femtosecond laser surgery in the ablation cooling regime for improved depth and speed

This project will study the physical effects of ultra-fast lasers operating in the 'ablation-cool' regime, where the short laser pulses operate at a very high pulse rep-rate so that the pulses occur before the heat is dissipated in the tissue. This can overcome the difficulties that result from laser-cutting tissue at the normal low rep-rates. The advantages include enhanced efficiency of cutting, improved removal-rates of products material, use of lower powers, and allowing deeper penetration depths. This will have a pronounced impact on the operation in systems where fine-tuning of accuracy of surgery, deep tissue penetration, and product removal are critical, such as vocal cords lesions or spine surgeries.

The project utilizes a burst-mode femtosecond laser system that would deliver pulses at nearly 1.5 GHz rate leading to high energy deposited into the target area. The investigators hypothesize that such a burst mode GHz train of pulses would result in a deeper sub-surface ablation. The PIs further predict that such a pulse train will lead to an order-of-magnitude increase in ablation rates compared to conventional kHz repetition rate femtosecond lasers, in addition to avoiding thermal side effects.